Electronic and Magnetic Mechanisms in Low-Dimensional and Novel Materials

It is proposed to pursue a wide-ranging research program on the quantum-mechanical behavior of matter at low temperatures, particularly as manifested in systems of reduced dimensionality, superconductors, and matter subjected to intense magnetic fields.